Integrated System for Ensemble Recording of Neuronal Activity in the Mammalian Brain

This award provides funding for the development of a multichannel recording device that can be used to monitor activity of multiple individual neurons in the mammalian brain. Although it is now accepted by most neuroscientists that most brain functions reflect the concerted efforts of many neurons, direct demonstrations have been hampered by the limitations of currently available technology for single-cell recording from the brain, including the lack of automation in electrode placement, a relatively low number of electrodes that can be used simultaneously, and a relatively high cost. The device to be developed should significantly improve on the technical limitations of existing hardware, while not increasing the cost of the equipment needed . Important features include a low cost manipulator system that can position up to 64 electrodes independently of each other, a feedback control system that will couple positioning of the electrodes to the signals detected by the electrodes, and an implant device that allows implanted electrodes to be left in place for long-term recording.